Geometry, topology and group theory of surfaces

Abstract

Award: DMS-0905748
Principal Investigator: Christopher J. Leininger

This project aims to study the geometry of various structures on
surfaces, actions of the mapping class group on these spaces, and
topological/dynamical aspects of surface homeomorphisms. This
includes (1) an ongoing project with R.P. Kent on convex
cocompactness in the mapping class group, with a focus on free
groups and surface groups; (2) a topological investigations of
algebraic relations in the mapping class group and the closely
related braid groups with D. Margalit; (3) a study, via geodesic
length functions, of certain singular euclidean geometric
structures on surfaces and their degenerations in a joint project
with M. Duchin and K. Rafi; (4) a continuing project with
B. Farb and D. Margalit to provide a topological model for
"minimal complexity" surface homeomorphisms.

Surfaces---like the surface of a ball or a doughnut---have been
studied for hundreds of years, and are fundamental and beautiful
objects in mathematics. The study of surfaces is intrinsically
interesting, but is also responsible for the creation of entire
fields of mathematics, as well as the development of techniques
in many others. As such, the theory of surfaces and their
geometries lies at the juncture of several fields of mathematics
including complex analysis, differential geometry,
low-dimensional topology, geometric group theory and dynamics.
Many geometric objects can be described using surfaces as the
basic building blocks. To study these objects one naturally
encounters the notion of a "homeomorphism" of a surface: this is
a kind of "symmetry" which preserves only the most basic
properties of the surface. The set of all homeomorphisms is
somewhat unwieldy, but the most important features can be
distilled into a more manageable structure called the "mapping
class group." This project proposes the study of several related
problems about surfaces, their homeomorphisms and mapping class
groups, and the implications of these studies to related
geometric objects.